The Iron Project: Large-Scale Atomic Calculations For The Iron-Group And Heavier Elements

Pradhan, Anil AST-9870089 Dr. Pradhan continues work on the Iron Project, an international collaboration whose goal is the development and application of theoretical and computational methods aimed at large-scale ab initio quantum mechanical atomic calculations for heavy elements of the iron group. The research includes inter-related components of theory, computations, and applications. The theoretical effort is directed toward major applications in astronomical spectroscopy, with a focus on stellar atmospheric models, emission from Fe in photoionized nebulae and active galactic nuclei and quasars. ***